Travel Support for U.S. Participants at an International Workshop; Wadern, Germany; March 9-13, 1992

The goal of research on programming environments is to increase the productivity of the software-development process by providing better tools for creating, manipulating, and understanding programs. During the week of March 9-13,1992, a workshop on programming environments will be held at the recently established International Conference and Research Center for Computer Science (IBFI) at Dagstuhl Castle in Wadern, Germany. The workshop will bring together about forty active researchers in the area. It will focus on new and recent developments, with emphasis on the following topics: o Single-programmer language-based environments o Generation of programming environments o Tool-integration mechanisms o Debugging o Merging and restructuring of systems o Projection and understanding of systems o Incremental computation The intention of the workshop is to stimulate intellectual ferment among the participants. The workshop's format will make it possible for participants to give more in-depth presentations than is customary at conferences. Presentations that include demonstrations of working systems or prototypes will be encouraged. This award provides funds to cover the transatlantic airfare of the participants from the United States.